Imagining the Future of Learning: Systems, People, and Technology

Realizing the power of CyberLearning to transform education will require vision, strategy, and an engaged, talented community. Activities are needed to energize the community, refine and sharpen the path forward, and provide a more active and ongoing forum for clarifying the big ideas and challenging questions. In response to this need, SRI International, together with the Lawrence Hall of Science and with key support from the National Geographic Society, will organize a set of activities to advance a shared vision of the future of learning, encompassing the systems, people, and technology dimensions mutually necessary for any scalable and lasting advances in education.

The innovative format for these activities is inspired by the TED talks, Wikipedia, and social networking. As in TED, a small set of leading researchers will be selected to give very short, very high quality, stimulating talks. These CyberLearning Talks will be featured at a 1-day summit meeting in Washington, DC, streamed so that local cyberlearning research communities may participate at a distance, and posted on a website. As in Wikipedia, CyberLearning Pages will be created, each page featuring a synopsis of a big idea in CyberLearning and the relevant research challenges. The 1-day conference will be followed by a small 1-day workshop focusing on how to evaluate cyberlearning efforts, identify progress, and identify important new directions. Finally, to disseminate and stimulate conversation about both the video talks and Wikipedia entries, a presence for the community will be created on social networking sites.

The target outcomes of the effort will be (i) a cyberlearning research community with participants from across the many current constituent communities, and fostered awareness and appreciation of the broad range of expertise and interests across that wider community; (ii) foundations for sustained discussion of big ideas, insights, and challenges to help this new community define a more engaged, crisper vision of its own future, (iii) a community resource that can become a site for interconnecting stakeholders in the CyberLearning community and supporting investigators in improving field-generated proposals, and (iv) an emerging sense of direction for CyberLearning among a wider audience of leaders. Such community building and awareness is expected to foster collaborations that will lead to innovative and research-grounded ways of using technology to transform education -- formal and informal and across a lifetime.